U.S.-Japan Cooperative Research: Synthesis and Structure of Ordered Surface Alloys: Alkali Metals Deposited on Transition and Noble Metals

9417179 Van Hove This award supports a two-year cooperative research project between Dr. Michel Van Hove of the Lawrence Berkeley Laboratory and Professor Hiroshi Tochihara of Hokkaido University. The collaborators will conduct research on atomic-scale surface structures of ordered surface alloys obtained by depositing alkali metals on transition and noble metals. These surface materials are of considerable interest in such important technologies as catalysis and magnetic superlattice properties. The main technique to be used will be low energy electron diffraction (LEED.) The sample preparations and LEED intensity measurements will be carried out at Hokkaido University in the laboratory of Professor Tochihara who is particularly well-experienced with complex alkali metal adsorption structures. The structural analysis of the measured data will be performed by Dr. Van Hove in Berkeley. By combining these expertises, the two groups can achieve a deeper understanding and more rapid progress than can either group alone. Therefore, this proposal fulfills the objectives of the Program in its exchange and transfer of scientific knowledge through an international collaboration. ***